Conference Support: Sustainability of Wetlands and Water Resources: How Well can Riverine Wetlands Continue to Support Society into the 21st Century

00-03056
Holland

Conference support: Sustainability of wetlands and water resources: How well can riverine wetlands continue to support society into the 21st century

The objectives of this conference are to: 1) advance scholarship, research, and teaching focused on sustainability of watershed systems; 2) create public and private-sector partnerships to achieve interdisciplinary solutions to critical environmental and societal issues related to water and wetland resources; and 3) promote effective, strategically targeted conservation activities and public policy development through the transfer of ecological knowledge to non-governmental organizations, educational, scientific, corporate, agricultural, aquacultural, and governmental constituencies. The conference is being hosted by the University of Mississippi and will take place May 23-25, 2000.